Conference Support to the Engineering Research Centers and the Industry/University Cooperative Research Centers in FY 2005

This award provides funding in FY 2005 to Ann Becker and Associates, Inc. (ABA) to provide conference planning and support services to the Engineering Research Centers (ERC) and the Industry/University Cooperative Research Centers (I/UCRC) Programs.